United States-Hong Kong (REU) in Numerical Analysis and Scientific Computing

The Department of Mathematical and Computer Sciences at the Colorado School of Mines (CSM) will establish an International REU Site in Hong Kong. The focus of this activity will be numerical analysis and scientific computing with application to problems in applied science and engineering. The program will involve internationally known Numerical Analysis/Scientific Computing faculty from four major Hong Kong universities: Hong Kong Baptist University, Chinese University of Hong Kong, City University of Hong Kong, and Hong Kong University of Science and Technology. The primary location of the program will be at Hong Kong Baptist University. The eight-week program will be offered during each of the summers of 2005, 2006 and 2007, and will involve ten U.S. student participants, the majority of whom will be non-CSM students.

The participating students will engage in team research with faculty mentors from the four Hong Kong universities on topics from areas such as numerical linear algebra, wavelets, multidimensional integration and approximation, problem solving environments, and numerical partial differential equations. Each project will involve original research, blending algorithm development and analysis, both mathematical and
computational.

The program will introduce talented undergraduate students to the joy and excitement of discovery that comes from participating in a vibrant international research program. It will also enhance the students' technical expertise by providing them with the opportunity to see and experience research problems from a global perspective, and they will gain training and independence in working on research problems in a multi-cultural setting. It is anticipated that this REU experience will encourage more students to pursue advanced degrees in the mathematical sciences with an international perspective.